An Integrated Approach to the Analysis of Concurrent Software Systems

This project will investigate the feasibility of integrating two different, but related approaches to validation of concurrent software systems. Specifically, the integration of the analysis techniques that are associated with a particular concurrent system modeling scheme, called constrained expressions, and certain static analysis techniques for studying synchronization properties of concurrent systems will be studied. The complementary nature of the strengths and weaknesses of these two approaches suggests that their integration will produce techniques that surpass existing analysis techniques in both power and practical utility. While the theoretical limitation of general approaches to validation of concurrent software systems are known to be quite severe, little is known about how limiting these considerations actually are in practice. Experience with existing concurrent system analysis techniques is limited to "toy" systems, due to the computational complexity of the techniques and a lack of automated support. The demand for reliable concurrent software requires experimenting more fully with these techniques to determine how they "scale-up" to useful, realistically- sized systems.